CBET Grantee Conf, June 6-8, 2012, Baltimore, MD,GLOBAL ENGINEERING THROUGH DISCOVERY & INNOVATION TT Virus: A Potential Indicator of Human Enteric Viruses in Source...

CBET 1246788
Sharon C. Long
University of Wisconsin-Madison

This is a travel grant for the CBET grantee to attend and present at the CBET Grantee Conference in Baltimore, June 6-8, 2012